Control Of Ice-Pavement Bond On Highways And Bridges

This project is in accordance with AD/ENG Bulletin 85-25 for Innovative and Novel Research. The problem of ice formation on highways and bridges is a constant cause of accidents and fatalities in northern climates, in addition to the cost of providing materials to reduce the hazard. Salts, sand and ashes of various types have been used to reduce the icing effect, but these precautions do not eliminate the cause of icing. This project will explore fundamental studies on the formation of ice to pavement bond and to explore methods by which the bond formation may be prevented. The study will involve the correlation of chemical and mechanical behavior to determine the mechanism o ice formation and investigate methods of deicing to eliminate the action. The effect of surface agents and hydrophobic coatings will be investigated. The researcher is qualified to perform this investigation. This is a one time award for 12 months.